Collaborative Research: Development and Application of an Innovative Optical Spectrometer for the Investigation of Diffuse [OII] Emission from the Interstellar Medium

AST-0138197
Harlander, John M.

A unique, innovative Fourier Transform Spectrometer (FTS) will be designed and built to map the [O II] 3727 forbidden emission in the Galaxy. These data will be combined with similar data recorded of longer wavelength emission lines to determine the physical parameters of the hot interstellar medium. The results will influence work in star formation, and galactic dynamics as well as work in the hot interstellar medium. This innovative approach to instrumentation will also have application to other areas of astronomy. This work will support one graduate student and one undergraduate.
***